RCN: Co-creating Research for Just Arctic Future Infrastructure Transformations, Resilience, and Adaptation (CRAFT)

Arctic infrastructure is rapidly changing under the impact of climate change, socioeconomic and
political shifts. Its existence varies by different regions and countries. In some places it is
outdated and inadequate, while maintaining or upgrading poses significant challenges. In other
places there is a need in new roads, airstrips, Internet and utilities. And for some places and
communities’ concerns exist about negative impacts of infrastructure on cultures and ecosystems.
This issue is especially important among Indigenous Peoples as infrastructure development has
traditionally served interests of external groups to exploit resources without local
approval. As the Arctic undergoes transformations, and climate-induced damages, such as flooding and
erosion accelerated by thawing permafrost and sea level rise, understanding where and what
infrastructure demands the most attention becomes highly important for building resilient and
sustainable infrastructure. Development of this understanding requires collaborative efforts to learn from
past mistakes, ensure just transitions, and construct Arctic infrastructure that fosters a more
equitable and sustainable future.

The project brings together researchers working in the Arctic (e.g., Alaska, Norway, Greenland, and
Canada) and Indigenous community members (in particular, residents of the Yukon-Kuskokwim Delta
Region) to collaboratively identify the challenges and good practices of co-production of
place-specific and theoretically grounded knowledge of Arctic infrastructure. The project will
promote transdisciplinary research inclusive of diverse ways of knowing, experiencing and
perceiving the world. This project aims to formulate locally and regionally relevant questions
for future research on just infrastructures through the following objectives: 1) Map existing
expertise developed by academia, Indigenous Peoples, communities and other stakeholders and learn
from each other about infrastructure planning, managing, maintaining and adapting to climate
conditions and how it involves/excludes stake-, rights- and knowledge holders; 2) Identify
prospects for knowledge convergence and co-production on studies of different forms of
infrastructure in the Arctic; 3) Start creating a self-sustaining experts network that could be
utilized for decision making, research and other purposes related to critical infrastructure
planning, construction, maintenance, and removal of abandoned objects. The project will begin
development of a knowledge platform to help decision-makers assess solutions designed to facilitate the
equitable and just development of critical infrastructure. The project provides learning
opportunities by including Indigenous knowledge holders and early-career scholars in planning,
implementing, and reporting research projects.